Midwest Partial Differential Equations Seminars

Abstract
Tartakoff

Initiated in 1977, the Midwest Partial Differential Equations Seminar is a semiannual meeting on recent developments in partial differential equations. The seminar rotates among midwestern universities, NSF funds partially support expenses for speakers, graduate students and postdoctoral fellows.The seminars provide rapid communication of problems, methods, and results. The Midwest PDE Seminar encourages collaboration among research mathematicians from several institutions.